IDA/WG: Alaska Women in Science

9552947 Fate The public broadcasting radio station KCAW-FM is to produce a five-part radio series profiling Arctic women in science. The series, to be called, "Alaska Women in Science," is scheduled to be broadcast with the cooperation and support of the Alaska Public Radio Network. It will be distributed statewide, with curriculum materials for grades 6-12 to be distributed under the auspices of the Alaska Department of Education. Both five and fifteen minute versions of the programs are to be prepared for broadcast and distribution. A series of profiles featuring Alaskan women scientists, representing a range of disciplines, will show them at work in their laboratories and/or field environments. Each segment is to offer both personal and professional insights into the experiences of the woman scientist featured, and is to provides a positive role model for young women listeners.